1990 New Entrants Survey

The contractor will conduct the 1988 Survey of Recent Science and Engineering Graduates. This survey collects information on the demographic and employment characteristics of S/E bachelor's and master's degree recipients one and two years after graduation. All necessary steps connected with collecting and processing the data will be handled by the contractor with approval from the National Science Foundation. The Foundation is responsible for developing and maintaining a data base of demographic, educational, and employment information on scientists and engineers. This data base, the Scientific and Technical Personnel Data System, includes three surveys: the Experienced Sample Survey Recipients, and the Survey of Recent Science and Engineering Graduates. Results of the Experienced Sample and Recent Graduate surveys are combined to produce national estimates of scientists and engineers.